Spacetime Physics

A problem at the heart of physics persistently refuses to go away: What happens to spacetime at big bang and in the gravitational collapse at the center of a black hole, both of them times beyond which -- according to physics as now understood -- there is no time? The present work seeks to capitalize on this difficulty; to turn it into opportunity to win new insight into the foundations of physics. Tools to do this will include: (1) the classical dynamics of geometry as seen in the initial- value formulation of J. W. York, (2) the quantum version of this dynamics as seen in the usual WDW equation, (3) the quantum theory of measurement as it tells what about the predicted dynamics makes sense and what does not and (4) the translation of questions and findings from and into the information-theoretical language of bit counts.